KDI: TalkBank: A Multimodal Database of Communicative Interaction

The goal of TalkBank is the creation of a distributed, web-based, data
archiving system for transcribed video and audio data on communicative
interactions. These interactions will include mothers talking with their
children, family dinner table talk, classroom interactions, animal cries,
signed language, formal debates, phone calls, talk with foreigners, club
meetings, and dozens of other types of communicative interactions. The data
will come from speakers of many languages, professions, and ages. Some
speakers will have language disabilities and some will be language learners.
The formal specification for data in TalkBank will use a system called Codon.
Tools will be created for the entry of new and existing data into the Codon
format; transcriptions will be linked to speech and video; and there will be
extensive support for collaborative commentary from competing perspectives.
Researchers will be able to locate a particular segment of an interaction and
immediately play that section back on their computer monitors. TalkBank will
facilitate comparisons across social groups, languages, and situations. It
will also provide tools for working in detail on single populations, as well
as collaborative commentaries that test competing interpretations against a
constant set of data.

The initiative establishes an ongoing interaction between computer
scientists, linguists, psychologists, sociologists, political scientists,
criminologists, educators, ethologists, cinematographers, psychiatrists, and
anthropologists.